A Visual Database System For Computer Vision Research

A database system for computer vision must be able to manipulate data in numerous forms, running a full spectrum from values of scalar features, through arrays of light intensities, to complex linked data structures representing networks of partially and tentatively recognized shapes and models. This work entails the design and partial implementation of a prototype vision database system based on a hierarchical, relational data structure that can handle a wide variety of types of data. The design also includes a novel visual user interface that allows the user to examine and comprehend the entities being processed. In this work, the organization and access functions for the database system are developed through a study of the kinds of structures and operations used in two different vision application domains: robotics and medicine. Both primitive access functions and some higher-level vision operations are implemented in the prototype system. The flexibility and efficiency of the system are evaluated for vision algorithms being developed in robot vision and medical image processing research projects. The result will be a general scientific database system that can be accessed via both graphical and application program interface and that will satisfy the needs of computer vision systems.